Combinatorial and Probabilistic Approach to Geometric Functional Analysis and Applications

Abstract

The aim of the project is to develop a new combinatorial and
probabilistic approach to geometric functional analysis and its
applications. Some of new major ideas are expected to come from the
concept of the combinatorial dimension, which is a general form of the
classical Vapnik-Chervonenkis dimension. Arising from logic, probability
theory and computer science, the use of the combinatorial dimension
looks very promising also in a wide range of areas including geometric
functional analysis (finding nice sections of convex bodies), convex
geometry (study of polytopes), discrete geometry (counting integer
points and cells in sets) and extremal combinatorics. This new
combinatorial and probabilistic method is aimed at one of the hardest
problems in the theory of empirical processes - describe the classes of
functions for which the Central Limit Theorem holds uniformly. New
aspects of the celebrated concentration of measure phenomenon will also
be studied by a combination of probabilistic and purely geometric ideas.
This might give an insight into relationships between random and
deterministic structures in geometric functional analysis, as well as a
new view of local versus global asymptotic convex geometries.
Probabilistic approach will also be developed for problems of finding
nice submatrices of large matrices, which arise in functional and
harmonic analysis as well as in computer science.

The project opens new connections between functional analysis,
combinatorics, probability, convex geometry and applied mathematics. The
celebrated "probabilistic method" along with deterministic
combinatorial, geometric and analytic methods will merge into one
machinery, which may expand our knowledge on the
relationships between chaos and pattern that arise in a variety of
high-dimensional structures in pure mathematics and in computer science.
From the practical point of view, the results expected from this machinery
include justification of algorithms in machine learning, development of
algorithms for storage of large amounts of data and for data
transmission (such as error correction codes).